Intelligent Control of Systems with Set-Partitioned Dynamics

In this project, a new paradigm--system with set-partitioned dynamics is introduced. This paradigm encompasses a broad class of control formulations motivated by applications to systems such as industrial process, energy systems, and transportation vehicles. In this new paradigm, continuous but often uncertain dynamics of the system interacts with logical, although usually fuzzy structure imposed by component limits and design constraints. The research effort is devoted through analysis, design and experimental case studies, the formulation of an overall problem of controlling a plant whose behavior is determined not only by dynamics, but also by sharp or fuzzy boundaries on which these dynamics abruptly change. Design methods are developed for sharp and fuzzy partitioned observers, and for interior and transitional controls. Estimation and control parts of the design are integrated into an overall numerical-logical feedback control loop.***//